Materials Research Science and Engineering Center

9632524 Clifton The Materials Research Science and Engineering Center (MRSEC) at the Brown University supports interactive research in one interdisciplinary group focusing on advanced materials for structural and electronic applications. The research group emphasizes the development of a new generation of capabilities for measuring and modeling mechanical response at the microscopic level. Advanced measurement and modeling techniques will be used. The goal will be to develop methodologies to realize predictive capabilities and to understand the performance and limitation of particular microstructures at micron and atomic length scales. The MRSEC supports the development, operation and maintenance of shared experimental facilities for materials research. It provides seed funding for exploratory research and fosters research participation by undergraduates. The Center develops educational modules consisting of interactive demonstrations and laboratory projects to be used by mathematics and science teachers. The MRSEC also supports enhanced collaboration with industry, shared experimental facilities that also support research not directly funded by the MRSEC, and seed funding for exploratory research. The Center currently supports about 12 senior investigators, 2 postdoctoral research associates, 3 technician or other professional, 12 graduate students, and 4 undergraduates. The MRSEC is directed by Professor Rodney Clifton. %%% The Materials Research Science and Engineering Center (MRSEC) at the Brown University supports interactive research in one interdisciplinary group focusing on advanced materials for structural and electronic applications. The research group emphasizes the development of a new generation of capabilities for measuring and modeling mechanical response at the microscopic level. Advanced measurement and modeling techniques will be used. The goal will be to develop methodologies to realize predictive capabilities and to understand the performance and limitation of particular microstructures at micron and atomic length scales. The MRSEC supports the development, operation and maintenance of shared experimental facilities for materials research. It provides seed funding for exploratory research and fosters research participation by undergraduates. The Center develops educational modules consisting of interactive demonstrations and laboratory projects to be used by mathematics and science teachers. The MRSEC also supports enhanced collaboration with industry, shared experimental facilities that also support research not directly funded by the MRSEC, and seed funding for exploratory research. The Center currently supports about 12 senior investigators, 2 postdoctoral research associates, 3 technician or other professional, 12 graduate students, and 4 undergraduates. The MRSEC is directed by Professor Rodney Clifton. ***